Problem-Based Learning and Physics: Developing problem solving skills in all students

Physics (13) The problem-based learning (PBL) program initiated at the University for reforming undergraduate science teaching is being expanded beyond the University by the development of instructional models and materials made accessible to faculty worldwide through an online clearinghouse. The project is developing a database of problems, instructional models, evaluation tools, and web-based resources that effectively incorporate PBL across the content framework of introductory undergraduate physics courses. Materials are being collected and reviewed for a wide variety of introductory physics courses, for both science majors and non-science majors, across all levels of instruction and class enrollment. In addition to collecting existing problems and material, teh project is implementing problem-writing workshops as an important element in developing the collection of PBL materials needed to cover the different curricula of
physics at the college level. Selected clearinghouse problems will also be adapted to the high school setting.